Intra-arc Tectonics in the S.E. Coast Plutonic Complex, B.C.: The Role of Plutonism vs. Regional Deformation

9406690 Brown In convergent margin settings orogensis commonly involves emplacement of batholiths, deep burial and Barovian metamorphism of supracrustal rocks, thrust stacking of terranes and strike-slip displacements. The connection between theses processes is not entirely resolved however. The cause of deep burial and metamorphism is commonly ascribed to thrust loading; this proposal entertains the idea that large-volume magma emplacement could also accomplish the required loading. Similarly, large-volume plutons present difficulties in explaining how they could be emplaced in a convergent margin, as they presumably require dilatational space. This project will critically examine these issues in the Coast Plutonic Complex of British Columbia in conjunction with personnel of the Geological Survey of Canada. Results will test the viability of the magma loading idea and will contribute to the resolution of the space problem for large batholiths.